Developmental and Environmental Regulation of the Nopaline Synthases Promoter

Our long term goals are to understand the regulatory mechanisms of gene expression and the molecular basis of differentiation in plants using the nopaline synthase (nos) promoter as a model system. We will study the nos promoter to further understand the regulatory mechanisms controlling activation of the promoter in response to a variety of developmental and environmental signals. We have shown that the nos upstream regulatory region consists of two hexamer motifs and eight nucleotide spacer sequence and that this nos element is essential for promoter activity in various cells and for inducibility by wounding auxin, salicylic acid and methyljasmonate. During this grant period, we plan to further characterize the structure and role of the spacer sequence of the nos element by the synthetic oligonucleotide mutagenesis and the random site selection method which is based on the selection of specific protein binding sites from a pool of randomized DNA sequences. The sequences immediately upstream or downstream of the hexamer motif-containing region will also be studied by deletion analysis. Interaction between the hexamer motif-containing region and transcription factor will be investigated. We have isolated two cDNA and four genomic clones transcription factors which specifically interact with the hexamer motif-containing elements. Using gene specific probes of these clones, we will conduct Northern blot analysis and in situ hybridization experiments to study whether induction of the nos promoter by wounding or the chemical stimuli occurs by increasing the amount of a specific transcription factor. Preliminary data induction of the nos promoter is mediated at least in part by the level of the transcription factor. It will be necessary to investigate whether the increase is occurring at the transcriptional of post- transcription level. We also plan to study the promoter regions of the bZIP transcription factor genes by deletion and site specific mutation analyses. %%% The nos gene originated from Agrobacterium is strongly expressed in most plant cells and regulation of this promoter is controlled by plant transcriptional factors which are important for a variety of developmental and environmental signals. We proposed to study molecular mechanisms controlling the nos promoter by these factors. The information obtained from this study will be useful for understanding the structure and function of complex regulatory mechanisms involved in plant gene expression.